Dynamic Response of an Axially-Loaded Pile: A Theoretical and Experimental Investigation

This research program addresses the dynamic response of a finite deformable pile embedded in a half space under harmonic axial loading. The problem will be formulated to yield a Fredholm integral equation of the second kind which can be solved with suitable Green's functions. The analytical results will be verified by performing scale model experiments in a centrifuge with overconsolidated clay and dry cohesionless sand. Because of the needs in the design of structures to accomodate dynamic loading due to causes other than earthquakes such as wind and machine loads, detailed knowledge of the structural response is necessary for both safty and economic reasons. While dynamic analysis of the structure is reasonably well established, the dynamic interaction between the soil and the foundation system is still open to question. The centrifuge experimental program has a potential to provide the necessary data base for the calibration and translation of the theoretical analysis into direct engineering applications. In addition, the investigation will provide an opportunity to examine closely the suitability of various proposed techniques on dynamic centrifuge modeling, which is still very much in its infancy. The experience gained in this investigation will reinforce and expand the current knowledge and technology on the applications of the centrifuge technique to important areas of soil dynamics.